SGER: Node Compromise Models and Their Defending Considerations in Mobile Ad-hoc Sensor Networks

Node compromise occurs when an attacker through some subvert
means, gains the control of a node in the network after deployment.
Once in control of that node, the attacker can alter the node to
listen to information in the network, input malicious data, cause
black hole, or any one of a myriad of attacks on the network.
Generally a node compromise occurs in two ways. The first way is
called physical/external attack, when the attacker physically
accesses or captures a node, and then directly connects the node
to his/her computer via a wired connection of some sort. Once
connected the attacker controls the node by extracting the data
and/or putting new data, etc. Most researchers in this area have
only considered this kind of node compromise attack and many
methods have been discovered to detect such attacks. The second
way is called soft/internal attack, when the attacker compromises
a node in a network via software/viruses which can spread over
the physical communication channels or over the air interfaces.
The soft attack method is hard to be detected and is the main or
the only reason that leads to the emergence of compromised nodes
in some practical applications.

This proposed research aims at developing node compromise
distribution models and their defending considerations for
Mobile Ad-hoc Sensor Networks. Specifically, the research
involves an exploratory investigation of modeling attack
distribution that can help system to estimate the probability
of a node being compromised and thus defend against it
effectively and efficiently. We develop several models for a
node compromise based on different application environments.
Furthermore, we develop an analytical framework to theoretically
evaluate our node compromise distribution models. The analytical
results will be evaluated by extensive simulations and
experimental measurements.